NSF Project Scoping Workshop: Accelerating Progress Towards Practical Quantum Advantage

This award will support a two-day NSF Project Scoping Workshop on the topic of "Accelerating Progress Towards Practical Quantum Advantage". The workshop will be hosted at the Ohio State University on June 27-28, 2022. This Project Scoping Workshop will provide a forum for the U.S. Quantum Information, Science, Engineering, and Technology (QISET) community to take stock of recent scientific advancements, identify current challenges, discuss opportunities to overcome those challenges, and map a way forward for Accelerating Progress Towards Practical Quantum Advantage. The workshop participants will discuss opportunities for goal-oriented, use-inspired translational research that brings together a convergence of the physical sciences, engineering, technology, computer science, and software engineering. If successful, such activities will give rise to new industries and must engage all Americans – regardless of background or location – and lead to new career opportunities in QISET. This project advances the goals of the National Quantum Initiative Act.